Switching Activity Estimation Using Bayesian Networks

Switching activity estimation is an important aspect of power estimation at circuit level. Although simulations can provide accurate estimates of switching activity, since simulations are time consuming, recently, probabilistic models are being considered that can capture temporal, spatial and sequential correlations in a circuit. In this research, we propose to explore a novel switching probability estimation strategy using Bayesian networks.

Bayesian Networks (BN) can be used to effectively model complex conditional dependencies over a set of random variables. The BN inference schemes serve as powerful computational mechanisms that transform the circuit into a junction tree of cliques to allow for probability propagation by local message passing. The proposed approach is accurate and fast.

We intend to investigate (i) power estimation of very large combinational circuits (by developing segmentation schemes) with input modeling to handle complexly correlated input signals, (ii) Bayesian network formalism to handle real delay models with glitches, and (iii) switching estimation in sequential circuits using the Bayesian networks model.